RUI: A Comprehensive Study of the Elastic Properties of Carbonates at Ambient Conditions

9615166 Gwanmesia The PI proposes significant undergraduate involvement in a study of elastic properties of a suite of carbonate minerals of importance in the earth's crust using a Digital Ultrasonic Interferometer. Elastic wave velocities will be measured for hot-pressed polycrystalline specimens at ambient pressure and temperature. ***